Acquisition of an ICP-MS as an Institutional Resource at Drexel University

9724184 Gealt This is an award to provide support for instrumentation to conduct collaborative research on metal release from biologically mediated sulfide minerals, metal separation/recovery from wastewater, metals in drinking water and metal transport and effects on bioprocesses in natural water. The proposal leading to this award was submitted in accord with the NSF Instrument Development and Acquisition Solicitation, NSF 97-24, Major Research Instrumentation (MRI) Program. The research being conducted on the transport and fate of metal contaminants of water addresses a topic that has been significantly displaced by emphasis on organic contaminants of water. Results of the collaboration between investigators that is likely to be enhanced through use of this instrumentation is expected to improve our understanding of dominant processes that control the fate of metals in natural systems as an important step in management of the quality of environmental resources. ***